An Investigation of the Effects of Cold, Thick Lithosphere on Deformation of Slowly Slipping Mega-Transforms; The Andrew Bain Transform, SWIR

Under this funding, a group of US scientists will join an Italian ship of opportunity to study the Andrew Bain Transform Domain (ABTD) of the Southwest Indian Ridge, and will collaborate in the post-cruise research. The ABTD is broad and the active transform fault consists of a series of short relay-type extensional basins connecting a long straight southern strand and a shorter straight northern strand. The new geological and geophysical data (multibeam bathymetry/sidescan, gravity, magnetics and multi-channel seismics) from the expedition on the Italian R/V Explora , when combined with data collected by the PIs previously, will provide a complete view of the morphotectonic fabric and physical structure of the ABTD. These new data can be used to address the following questions; 1. Where does the Principal Transform Displacement Zone lie within the ABTD? 2. What forces led to the formation of the extensional relay basins that connect the longer southern and northern transform faults within the ABTD? 3. Can a theoretical/numerical model be developed to explain the observed morphotectonic signature of the ABTD and other slow-slipping mega-transforms? 4. How does the morphology and structure of the Andrew Bain Transform compare to large continental transforms, and do the similarities provide addition constraints on the deformation of continental mega-transforms?